Materials Research Science and Engineering Center

The Materials Research Science and Engineering Center (MRSEC) at the University of Chicago supports innovative research to produce the design principles for the next generation of materials. The research is focused on investigating materials formed far from equilibrium, exploring new paradigms for material fabrication and response, and exploiting feedback between structure and dynamics. Senior investigators come from seven Departments and five Institutes of University of Chicago and two Divisions at the neighboring Argonne National Laboratory. In addition to training a diverse group of graduate and undergraduate students, the Chicago MRSEC brings science inquiry experiences to underserved students in neighboring communities on Chicago's South Side including programs for students and teachers and after-school Science Clubs. The MRSEC provides summer research opportunities to undergraduate students from all over USA. As part of its outreach to the general public, the MRSEC collaborates with Chicago's Museum of Science and Industry, the Exploratorium in San Francisco, and SciTech in Aurora, IL to develop materials science exhibits and to introduce graduate students to museum-exhibit development. The MRSEC is committed to increasing the Center diversity as reflected in the significant participation by women in the Center's investigators and leadership. The MRSEC has international collaborations with universities in Chile and Holland.

Research at this MRSEC is organized in four Interdisciplinary Research Groups (IRGs): (i) The IRG on Jamming and Slow Relaxation in Materials Far From Equilibrium considers the factors causing flowing systems to become rigid and trapped far from equilibrium. Its goal is to pursue new types of materials processing to exploit effects of aging and memory common to jammed and glassy materials. (ii) The IRG on Dynamic Transitions of Material Sheets focuses on the dynamics of interfaces, such as on the surface of a droplet or a membrane. The goal is to use the instabilities at interfaces to shape materials to create structure where explicit shaping is impractical. (iii) The IRG on Rational Design of Nanoparticle and Molecule-Based Functional Materials develops tools to create new classes of materials based on the large assortment of nanometer-sized particles now available. Goals include understanding the fundamentals of nano-particle self-organization to tune array properties. (iv) The IRG on Macroscopic Quantum Coherence seeks to establish control of materials by addressing fundamental issues in quantum materials engineering. The goal is to create macroscopically-coherent states by focusing on systems that can be finely tuned to enable precise control of the complex quantum dynamics for the creation of useful devices.